RI: Multi-Level Modeling of Language and Translation

Previous approaches to statistical machine translation (SMT) have
employed phrase-based models which represent phrases as sequences of
fully-inflected words, and are otherwise devoid of linguistic
detail. Such approaches are unable to generalize and essentially
rely on memorizing the translations of words and phrases that are
observed in training data.

This project aims to improve the quality of SMT through the
introduction of more sophisticated models which represent phrases
using multiple levels of information. This can include basic
linguistic information such as part of speech, lemmas, and agreement
information (case, number, person), as well as more sophisticated
linguistic detail including semantic classes, argument structure,
co-reference, phrase boundaries, and information propagated from
syntactic heads.

By annotating all data with this information and extending models
appropriately, there is the potential to learn much more from
training than was possible under previous approaches. There is now
the potential to learn translations of unseen words if other forms of
the words occur; it is now possible to learn general facts about a language's
word order; it is now feasible to use linguistic context to generate
grammatical output. Such generalization has the potential to result
in much higher quality translation, especially for languages that
only have small amounts of training data. It therefore represents a
significant advance over previous approaches to SMT.

Multi-level models have the potential for wide-ranging impact on
all language technologies. Simultaneous modeling of different
levels of representation is an extremely useful and natural way of
describing language. This project is developing a general framework
for the creation of multi-level probabilistic models of language and
translation, and exploring its application to tasks beyond
translation including generation, paraphrasing, and the automatic
evaluation of natural language technologies.